Solidification of Binary Mixtures in a Pourous Media in the Presence of Double Diffusive Convection

It is known that the freezing of saline soils or of soils saturated with herbicides, fertilizers or various contaminants may result in the exclusion and concentration of the solute or contaminant at the freezing front. Solidification of industrial coatings and ingots is also associated with segregation at the freezing front, dendritic crystal growth, the formation of a mushy zone, and density-driven convection, suggesting that an analogy exist between the freezing of saline soils and the solidification of castings. In castings, the redistribution of the solute by the interdendritic liquid flow causes nonuniformities (segregation) in alloy composition and affects the physical and mechanical properties. This research proposal outlines a fundamental study of flow and heat transfer processes in a system involving the solidification of salt solutions in a porous medium. A rectangular test cell containing an aqueous salt solution and metallic or nonmetallic spheres with solidification beginning at one vertical wall would be studied. Specifically this research project will 1) record the transient and spatial variation of temperature within the system, 2) photographically record the freezing process to provide qualitative and quantitative information, 3) develop a mathematical/numerical model of the solidification process in the presence of double-diffusive convection and 4) compare the predictions of the model with the corresponding experimental data. An understanding of the role of interdendritic liquid flow in the porous media can aid in predicting segregation processes in freezing soils, and also in the control of the quality of castings.